NSF Center for Single-Entity Nanochemistry and Nanocrystal Design

The NSF Center for Single-Entity Nanochemistry and Nanocrystal Design (CSENND) leverages the inherent heterogeneity of nanocrystals for accelerated discovery and design of functional nanocrystals. Nanocrystals are drivers of new science and innovation on account of their structure-dependent properties. Yet most syntheses of nanocrystals produce ensembles of nanocrystals with different sizes, shapes, and surfaces. CSENND creates high-throughput technologies to synthesize and study the structure and properties of single nanocrystals or ensembles of nanocrystals. CSENND also develops high-resolution and computational methodologies that will identify and explain structure-property relationships for nanocrystals. Together, this powerful suite of new tools enables the design and synthesis of nanocrystals with desired functions. CSENND offers an integrated training environment in data-guided discovery emphasizing collaboration, innovation and communication. CSENND is partnering with the Primarily Undergraduate Nanomaterials Collaborative (PUNC) to support both research and the development of curricular materials to disseminate scientific content in informal environments.

Single-nanocrystal approaches are essential to address the grand challenges presented by nanocrystal heterogeneity; however, this heterogeneity presents a screening challenge on account of the large and multidimensional experimental space. CSENND develops high-throughput and high-resolution tools that accelerate and enhance single-nanocrystal analyses. These synthetic, computational, spectroscopy and microscopy tools enable CSENND to understand nanocrystal features that are related to fundamental properties of interest, leading to testable hypotheses that will drive conceptual breakthroughs for nanocrystal design. Initial demonstrations of the CSENND design process include the design of nanocrystal catalysts for urea synthesis and the design of photothermal nanocrystals for efficient light-to-heat conversion.